MRI: Acquisition of a 400 MHz Nuclear Magnetic Resonance Spectrometer (NMR)

With this award from the Major Research Instrumentation Program, Professor Alexander Schwab from Appalachian State University and colleagues Grant Holder, Nicole Bennett, Michael Ramey and Michael Hambourger will acquire a 400 MHz NMR spectrometer. The proposal is aimed at enhancing research training and education at all levels, especially in areas such as (a) investigation to probe whether there is a kinetic microwave effect utilizing the Wittig reaction of stabilized ylides; (b) structure of the organic anion transporter in biological membranes; (c) cobalt bis(glyoxime) complexes as reversible catalysts for hydrogen production; (d) metabolic screening of antioxidant-bearing raw materials using 1H NMR and multivariate analysis; (e) multifunctional hexaphenylbenzenes; and (f) modular approach to metal coordination polymer networks.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic/inorganic chemistry, materials chemistry and biochemistry. This instrument will be an integral part of teaching as well as research at Appalachian State University.